A Multilayer Mirror/Monochromator for Dual-Energy Digital Subtraction Angiography

A pair of large multilayer reflectors will be designed and fabricated, one to operate just above, and one just below the K- edge of iodine for application to dual-energy subtraction angiography using synchrotron radiation. The specular-angular responses at the K-edge will be measured, and the performance will be analyzed in a synchrotron angiography beam line, in this Phase II program. Additional studies of fabrication parameters will be carried out with a view of optimizing reflectivity.